FASEB Summer Research Conference: Lymphocytes and Antibodiesto be held in Saxtons River, Vermont, June 6-10, 1993

This grant will support the participation of junior investigators and students in the FASEB summer research conference on Lymphocytes and Antibodies. This will be a small meeting with a strong scientific program covering a number of selected topics of intense current interest and activity in basic immunobiology. The small size and residential arrangements of the meeting allows extensive discussion among the participants who share a multidisciplinary interest in problems of specific recognition and regulation in immune function.